The Pueblo Project

This is a three-year project designed to enhance the physical science instruction in all of the Pueblo, Colorado city schools, grades K-5, and to achieve a condition of equity which allows full educational opportunity for every child regardless of factors which have limited science achievement in the past. The Pueblo Public School District No. 60 is among the highest ten in the nation in the enrollment of Hispanic children. Seventy-two Leader Teachers will participate (1) during the summer in a 1-week Equity Institute followed by a 3-week Physical Science Institute, (2) during the academic year in monthly half-day workshops to prepare for classroom use of kit materials, (3) during the following summer in a one-day workshop with their principals to plan for the science inservice of all the teachers in their schools, and (4) during the second year of participation, in the implementation of their school's science inservice plan. This project is appropriate for the Teacher Enhancement Program because it is a district-wide project designed to enhance in a substantive way the science teaching of Leader Teachers in all district schools, and because it effectively addresses equity issues in the teaching of science to children. The equity component is modeled on the successful, NSF-funded SEER project which was conducted in St. Louis, Missouri. Non-NSF cost-sharing is approximately 21% of the amount requested from NSF.